Conference: GREPSEC VI Workshop 2023

This award supports participation of students in the sixth GREPSEC workshop, held August 7-8 2023 in conjunction with the USENIX Security Conference. GREPSEC promotes increased engagement in computer security research, specifically targeting women and underrepresented groups through mentorship. The goals of the workshop are to increase diversity in the field. Prior GREPSEC attendees have gone on to publish in a range of venues, mostly focused on the field of cybersecurity.